Mathematical Sciences Research Equipment 1992

The Institute for Scientific Computing and Applied Mathematics at Indiana University will upgrade its set of workstations and acquire graphic workstations, a laser color printer and some video material. This equipment will be dedicated to support research projects concerning the approximation and bifurcation of attractors, the numerical study of collisionless plasmas, the development of new algorithms related to the incremental unknowns methods, and their application to fluid mechanics.